Understanding Quasar Central Engines Using Narrow Intrinsic Absorption Lines

This program will use archival data from the Very Large Telescope (VLT) and the Keck Observatory to probe quasar winds. It will result in improved statistical studies of the link between the absorption line properties and optical and radio properties of quasars. This will be accomplished by studying intrinsic absorption line systems through their variability and through comparison of photoionization and hydrodynamic model predictions of absorption features with the data.

Broader impacts of the work include training of undergrad and graduate students, and outreach to the local community via the established yearly Astrofest, a four night festival of astronomy attracting over 1500 members of the general public each summer.